Oceanographic Technical Services, R/V Blue Heron

0070539
Ricketts
This award to University of Minnesota provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Blue Heron, a research vessel operated by University's Large Lakes Observatory as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct lacustrine studies in the Great Lakes in CY2000 and beyond.
***